Design of Improved Approximation Algorithms for Combinatorial Optimization Problems

Approximation algorithms are efficient algorithms for combinatorial
optimization problems that deliver solutions which are guaranteed to
be within a certain factor of the optimum. This area of theoretical
computer science has seen a tremendous growth in the last decade for
various reasons. First, several important techniques for designing
such approximation algorithms have been discovered, including the use
of convex optimization techniques and more specifically semidefinite
programming. Also, major advances in complexity theory have lead to
strong non-approximability results, sometimes even showing that for
certain problems trivial approximation algorithms give the best
guarantee one could hope for (unless P=NP).

In this project, which is a continuation of the PI prior CAREER award,
the emphasis is both on the design of general techniques for deriving
approximation algorithms and also on obtaining improved approximation
algorithms for several classical hard optimization problems. The
problems to be considered include routing problems, the traveling
salesman problem, the Steiner tree problem, the sparsest cut problem,
and scheduling problems.